Characterization of the Role of PSF During pre-mRNA Splicing

Patton, James G.
NSF MCB-9974542
Abstract

Characterization of the Role of PSF During pre-mRNA Splicing.

PTB-Associated Splicing Factor (PSF) is a 100kD RNA binding protein
that was originally identified based on its co-purification with
Polypyrimidine Tract Binding Protein (PTB or hnRNP I). Depletion of PSF
from splicing extracts causes a block to the second step of splicing which
can be rescued by the addition of recombinant PSF suggesting that PSF is an
essential second step splicing factor. To further characterize PSF, a
series of experiments have been performed to analyze its RNA binding
specificity and identify protein-protein interaction partners. Preliminary
results suggest that PSF binds to a phylogenetically conserved stem
structure within U5 snRNA (stem 1b). One of the goals of this project is
to determine the affinity of PSF for RNAs encompassing one or both strands
of stem 1b followed by direct analysis of PSF-U5 interaction and mapping of
the exact binding site for PSF on U5. From mutational analyses, it appears
that the sequence of stem 1b is important not only for the formation of the
stem itself, but also as a binding site for a specific protein(s). These
results suggest that PSF binds to stem 1b of U5 and that disruption of
PSF-U5 interaction results in a block to the second step of splicing. To
directly test this hypothesis, a series of quantitative PSF-U5 RNA binding
assays will be performed using fluorescence spectroscopy followed by a
functional in vitro assay in which U5 snRNA will be depleted from splicing
extracts and then reconstituted with either wild type or mutated U5 snRNAs.
This will allow us to test the effects of specific U5 mutations on both
splicing and PSF binding. These experiments will be complemented by in
vivo analyses following the creation of cell lines in which both alleles of
PSF are disrupted and replaced by an inducible PSF transgene. Thus, all U5
snRNA mutations that disrupt PSF binding will be tested for their effects
on splicing both in vitro and in vivo.
Expression of most higher eukaryotic genes requires that
intervening sequences (introns) be efficiently and accurately excised to
allow translation of functional proteins. Removal of introns occurs in two
steps within the spliceosome, a large complex containing multiple protein
and protein-RNA complexes. Among the best characterized of the spliceosome
components are the small nuclear RNAs (snRNAs) U1, U2, U4, U5, and U6,
which play central roles both in spliceosome assembly and catalysis. Much
less is known about the protein components of the spliceosome although
several factors have been identified, particularly those required for the
first step of splicing. In contrast, the identification and functional
characterization of proteins required for the second step of splicing has
lagged considerably, particularly in higher eukaryotes. The broad goals of
this project seek to increase knowledge about the second step of splicing
in humans and determine whether association of PSF with U5 snRNA is
essential for this process.